CT-ISG: PacketSpread: Practical Network Capabilities

Proposal 0714277
CT-ISG: PacketSpread; Practical Network Capabilities
Angelos Keromytis
Columbia University

Network denial of service attacks occur with increasing frequency and
devastating economic and psychological effects for the targeted sites
and their users. Addressing the problem has proven difficult, primarily
due to deployment and complexity concerns about previously proposed
mechanisms. In particular, receiver-controlled capabilities are an
elegant way for preventing communication interference, but are
difficult to deploy in practice and are susceptible to control-channel
attacks.

This project is investigating a new communication paradigm, named
PacketSpread, which makes feasible the use of capability-like mechanisms
on the current Internet, without requiring architectural modifications
to networks or hosts. The high-level hypothesis of the research is that
practical network capability schemes can be constructed through the
use of end-point traffic-redirection mechanisms that use a
spread-spectrum-like communication paradigm enabled by an overlay
network. To test this hypothesis, the project is prototyping and
experimentally validating the resistance of such a scheme against
attacks launched by realistic adversaries, while minimizing the
impact of the approach to end-to-end communication latency and
throughput.

The results of this research will enable a better understanding how
network-capability schemes can be deployed and used to provide robust
and secure communications under both normal operation and in times of
crisis. Improvements in the security and reliability of large-scale
systems on which society, business, government, and individuals depend
on will have a positive impact on society.